Collaborative Research: Magnetostratigraphy Database

McElhinney 9627808 The PIs propose to construct a Global magnetostratigraphy database as recommended by the International Association of Geomagnetism and Aeronomy (IAGA). The PIs will incorporate data collected worldwide including the former Soviet Union through a collaboration with Russian scientists.